SBIR Phase II: DNA Binding Proteins as Biosensors

This Small Business Innovation Research (SBIR) Phase II project will complete the development of biosensors for detection of heavy metals and acyl-CoA using sequence-specific DNA binding proteins. The presence of the target molecule will be reported by the biosensor as a change in fluorescence signal that could be read using a hand-held battery-operated reader.

The commercial application of this project is in the area of biosensors for markets that include basic and applied research, clinical diagnosis, environmental monitoring, drug screening, and process control in manufacturing operations.